Measurement and Analysis of Homogenous Carrier-Phase Turbulence in Fluid-Particle Flows.

Abstract
CTS-9978814
C.T. Crowe, C.D. Richards and T.R. Troutt

The objective of the proposed project is to improve turbulence modeling by using gravitational settling of particles as a simple flow experiment and adopting several new concepts in the simulation of turbulence dissipation. Particles with the same index of refraction as the fluid are to be released into a quiescent fluid at a steady rate over the entire cross-section of the tank. A three-dimensional Particle Image Velocimetry (PIV) will be used to measure fluid velocity in the tank. A small fraction of solid particles will be marked with a reflective coating for tracking. The measurement will provide the volume averaged components of the turbulence energy and the components of the Reynolds stress for liquid and particles in a zone where the turbulence is established. The effect of interparticle distance on turbulence dissipation will be evaluated. A12-month award will provide the proof of concept of the three-dimensional two-phase PIV measurements.